Constructing One Hundred Point Rectilinear Steiner Minimal Trees

9224789 Salowe This project will investigate and implement algorithms for constructing minimal rectilinear Steiner trees. Research will focus on decomposition theorems for 3-connected and k-connected components. The strategies to be used include backtrack searching and full set enumeration. ***